UCSD Science Teacher Institute for Elementary Science Teachers

This project proposes a partnership among San Diego County Schools, the University of California at San Diego, Research Centers, and industry to improve the quality of science instruction at the elementary (k-6) school level. The program will span a three year period and encompass a five week on-campus summer institute during each year of the program as well as a series of 8 meetings during the academic school year. Year One of the program will emphasize the Life Sciences, Year Two Earth and Environmental Sciences, and Year Three the Physical Sciences. An attempt will be made to integrate all science content areas with each other and with reading and mathematics. The major goal of the project is to educate 100 Resource/Mentor teachers who will return to their schools and provide inservice programs in science content and methodology. Commitments to participate in the program have been received from 27 school districts. This project is of particular interest to the Teacher Enhancement Program in that it is county-wide and involves all segments of the community in a cooperative effort to begin improving the system at the elementary level.